Dissertation Research: Intergroup Aggression in Wild Chimpanzees

Chimpanzees (Pan troglodytes) typically behave aggressively towards
members of other groups; such aggression occasionally includes lethal
attacks. Among mammals, such coordinated lethal aggression has been
reported for a limited number of other species, including humans and
several social carnivores. Most hypotheses attempting to explain this
limited distribution have focused on benefits gained from resource
competition, whereas the lethal raiding hypothesis focuses on the costs of
aggression, which are predicted to be low for species with social bonds
and variable party size. It has proven difficult to choose among these
hypotheses, largely because the events of interest occur rarely and are
difficult to observe systematically. This study will be the first to test
these hypotheses using field experiments in addition to naturalistic
observations. Playback experiments and behavioral observations will be
conducted in Kibale National Park, Uganda. In each experiment, the long
distance call of an unfamiliar male will be played from a concealed
speaker, and the subjects' responses recorded. Playbacks will be conducted
to parties of varying size and composition at the core and periphery of
the community's range. Behavioral sampling will test whether chimpanzees
modify grouping and vocal behavior in border areas. Because any
outnumbered individuals would risk attack, the lethal raiding hypothesis
predicts that near borders, chimpanzees will travel in larger parties when
possible, and when in small parties will avoid giving long distance calls.
Resource competition models do not predict a consistent increase in party
size or call suppression at borders, because risk of attack depends on
abundance and distribution of resources, which vary considerably over
time. Data also will be collected on ranging behavior, including the
frequency of border visits and patrols, and the rate of encounters and
vocal exchanges between groups. As the first experimental study of
intergroup aggression in chimpanzees, this study will provide an important
contribution to understanding the evolution of a behavior pattern which
profoundly affects the lives of several species, including our own.